NSF Student Travel Grant for the 2019 International Workshop on Bio-Design Automation (IWBDA)

The 11th International Workshop on Bio-Design Automation (IWBDA) 2019 takes place in Cambridge UK July 8th to July 12th and will bring together researchers from electronic design automation (the practice of using computer software to build complex electronics) and synthetic biology (the forward design of novel biological systems using engineering principles). The goal of IWBDA is to make biology more easily, robustly, reliably, and predictably engineered and therefore, tackle challenges in biology and medicine, leading to advances in disease diagnosis, treatment and prevention. This award provides travel assistance for ten undergraduate and graduate students to attend this workshop to present research, participate in a computer programming competition, and network with a large community of industrial and academic researchers. These participants will go on to form the foundation of the field in the future.

Specifically these students will join a wide variety of researchers (120+) from electronic design automation and synthetic biology in a unique context which does not exist elsewhere. They will have access to between twelve and fifteen technical talks, two invited lectures, ten to twenty posters, multiple group discussion sessions, and a featured student programming competition (BDAthlon). This award covers the registration for the workshop as well as partial support for travel and housing.